A TeraGrid MATLAB Cluster - Exploring New Services for an XD Future

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5). This project will establish an analysis resource consisting of a cluster equipped with MATLAB on the Teragrid.
Intellectual Merit:
This will provide a valuable addition for TeraGrid users pre and post-processing their outputs with complex analytics and fast simulations using a very user friendly interface -- one conducive to rapid innovation and discovery.
Broader Impact:
Matlab is an important data analysis tool for many Teragrid users and will support many user communities.